High-Resolution Laser Spectroscopy of Excited Atomic and Molecular States

9318662 Eyler This proposal is for "High-Resolution Laser Spectroscopy of Excited Atomic and Molecular States." It involves several studies on the structure and dynamics of excited states in small atoms and molecules. The experiments share a common experimental approach, multiphoton spectroscopy with narrow band lasers. They include precision measurements in fundamental atomic and molecular systems, the study of near threshold dissociation of diatomic molecules, the systematic investigation of excited-state dynamics in small molecules and the development of new spectroscopic techniques.